Variational and Topological Methods: Theory, Applications, Numerical Simulations, and Open Problems

Proposal: 0653868
Principal Investigator: Neuberger, John M
Institution: Northern Arizona University
Proposal Title: Variational and Topological Methods: Theory, Applications, Numerical Simulations, and Open Problems

ABSTRACT

This award will fund travel and local expenses of nine invited speakers and 25 new PhDs, graduate students and underrepresented minority mathematicians to attend a conference on "Variational and Topological Methods: Theory, Applications, Numerical Simulations, and Open Problems," to be held at Northern Arizona University in Flagstaff, Arizona, May 23-26, 2007. The topics to be discussed are semilinear boundary value problems, p-Laplacians and other fully nonlinear equations, eigenvalue problems, symmetry, dynamical systems, and equations from quantum-mechanical systems. Emphasis is on cooperation across disciplines and integration of numerical simulations. The program will consist of invited lectures and contributed talks. A tutorial will precede the conference. The conference maintains a web site at http://jan.ucc.nau.edu/~jmn3/var07/var07.html .